TEA Center: Research Into Land Base on the Fort Berthold Indian Reservation

The TCU Enterprise Advancement Centers (TEA Centers) strand allows TCUP institutions to capitalize on their investments in STEM instruction and research. A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the intellectual leadership of TCUP institutions so that they can address scientific or engineering needs or interests, both for their communities and broadly for the Nation. This project aligns directly with that goal by fostering new STEM employment opportunities and, through multiple pathways, providing the high-skilled workforce required for those opportunities, in partnership with Tribal agencies and STEM professionals.

With this award, Nueta Hidatsa Sahnish College (NHSC) takes a leading role in training technicians to assist scientists in surveys that are geographic or agricultural in nature. The efforts and services provided by NHSC faculty and students include restoration of traditional plants, to promote food security remote communities. This project also aims to serve the national interest by producing more qualified technicians to meet workforce demands in ecological monitoring. This project is funded by the Advanced Technological Education program, which focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.